Mathematical Interactive Network Design (MIND): A Computer Lab for Developmental Mathematics

9455606 Wetzel The Mathematical Interactive Network Design (MIND) project is a computer laboratory designed for interactive multi-media instruction in developmental mathematics. Using Visual Basic, multi-media software and object oriented programs are being developed by supervising instructors. Students are utilizing a graphical user interface and icon driven software to access and control various instructional media. The goal is to immerse the student in an intensely interactive, but easily constructed, simulated learning environment. This radically new system is meeting each student's unique and specific needs and providing an individualized tutorial session with appropriate, constructive, instructive, and timely feedback. Artificial intelligence techniques are being applied to implement the concept of guides whose behavior and even personality is being made to depend upon the attributes of the learner. The guide presents a combination of interactive digitized video and audio integrated with graphics and text to provide the students with choices of lecture, drill, problem solving, review and testing as deemed beneficial or necessary through monitoring of the student's progress and relative success. The software is being used to supplement and enhance, not replace, coursework.